Doctoral Dissertation Research: Picking Winners? Trade and Industrial Policies from Postwar Japan

This project examines the structure of 12 major industries in post-war Japan. It will refine measures of rents (returns) and external economies (spillovers) that are critical to the debates in the academic and development policy communities over the appropriateness of government support for strategic industrial sectors. In order for other countries to emulate the Japanese trade and industrial policies, it is critical to determine what criteria are used to choose among strategic investment options. Data for 1955 through 1990 will be collected from the Japan Input-Output Tables maintained by the Administrative Management Agency as well as from the Kogyo Tokei Chosa (Census of Manufacturing).